Student Support 2012 IEEE International Conference on Ultra-Wideband, ICUWB2012 to be held in Syracuse, NY, September 17-20, 2012.

Student Support 2012 IEEE International Conference on Ultra-Wideband,
ICUWB2012

Syracuse University is cosponsoring and hosting the 2012 IEEE International Conference on
Ultra-Wideband (ICUWB2012). The conference will be accepting full-student papers and posters about
student Research in Progress. Syracuse University, as the cosponsor and host, is planning to support
designated student presenters. This proposal is written to request Student Travel/Support Grant to fund
those students who will present their research papers at the ICUWB2012 in Syracuse, NY, September 17?
20, 2012.

Intellectual Merit
This conference provides a forum for the latest UWB systems, technologies and applications in both
microwave and millimeter wave bands. Wide scale commercial and defense applications are available
using UWB technologies.

Broader Impact
ICUWB 2012 will present contributions and developments in the UWB field covering a broad range of
topics through oral and poster sessions, workshops/tutorials, exhibitions. In this conference, there are two
venues for students to present their work: (1) regular paper and (2) student progress-in-research
colloquium. Students who are currently pursuing their degree and have research they would like to share
may participate in the Student Program by presenting incomplete research, currently underway. Research
projects which are not complete, research proposals and conceptual or theoretical proposals are all
welcome topics. Audience members will participate by providing the author with feedback and questions
pertaining to the ongoing research. This experience will encourage further development and refinement of
the student's research-in-progress and give presenting students the opportunity to network with
researchers and professionals in the field of ultra-wideband technology. Presence of these experts will
give the students chance for one-to-one interaction, discussion, and guidance. Moreover, supporting the
projects of students related to UWB research and development will contribute to the future of UWB
technology.